U.S.-Africa Cooperative Research: Refugia and Graveyards: Patterns of Species Survivorship in the Fish Fauna of Lake Victoria

9308276 Kaufman Technical Narrative: This proposal represents a collaborative research project involving the New England Aquarium, Moi University in Kenya, and the Uganda Freshwater Fisheries Research Organization (UFFRO) in Jinja, Uganda. The objective of this study is to better understand the Lake Victoria ecosystem and the processes that are presently causing dramatic declines in stocks of native fishes. Dr. Les Kaufman and his team from the New England Aquarium will work in conjunction with Mr. Richard Ogutu-Ohwayo and his team from the UFFRO. Also included in the research team is a doctoral student from Moi University, Mr. Peter Ochumba. By continuing a faunal survey of Lake Victoria, these investigators will obtain data to help elucidate the processes that are currently operating to structure the ecosystem. Specifically, they will consider a series of predictions that relate to the patterns of species survivorship among the indigenous fish species, the identification of refugia, and the template of selective forces experienced by these species. More generally, the study will produce a collection of archival fish specimens, more firmly assess the current extent of extinctions, establish a working team of in-country scientists, and build the necessary infrastructure to continue such work in the future. This project in environmental biology fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States, Kenya, and Uganda to combine complementary talents and conduct research in areas of strong mutual interest and competence. This project will also enable U.S. and African scientists, who are early in their careers, to work together conducting fieldwork, and collecting and analyzing data. Partnerships created through this project could lead to future, collaborative activities. ***